Minisatellite DNA, Kinship, and Population Processes

Voles are unique because of their central role in ecosystem food chains, the density cycles that many populations undergo, their potential to cause human health and agricultural problems, and their role as a general model of population regulation. Currently there is no explanation for the vole cycle of density but there is great interest in understanding this phenomenon from both the scientific and agricultural communities. In order to test possible mechanisms of population regulation, Dr. Tamarin and his colleagues have developed a technique to determine relatedness in field animals using radioactive isotopes and electrophoresis, a protein separation technique. Research in the past has resulted in estimates with confidence in maternity but reduced confidence in paternity because these estimates relied on electrophoresis that, due to limited marker genes, did not reveal sufficient variability. Recombinant DNA techniques, now available to overcome these problems, will be used to give near certain estimates of paternity.